Combustion of Chlorinated Hydrocarbons in Hazardous Waste Incineration

The objectives of the proposed project are to gain fundamental understanding of the dynamic, thermal, and chemical structures of premixed and nonpremixed flames of chloromethane and tetrachloroethylene, and to provide insight into such practical issues as flame stabilization, fuel mixing, and surrogate selection for incineration of chlorinated hydrocarbons. The investigation will involve laser-based measurement of temperature, velocity, and major species in an opposed-flow burner over a range of pressures and mixture ratios. The detailed structure will be compared to numerical predictions using available chemical kinetics data, and asymptotic analysis will be used to derive a reduced mechanism. Incineration is a viable technology for the safe disposal of hazardous chlorinated hydrocarbon wastes. These chemicals, however, are more difficult to burn than their unchlorinated analogs, they form soot more easily, and trace amounts of highly toxic compounds can be generated. The proposed research will increase the knowledge base of the combustion of this class of compounds.